Adaptive Impedance Controlled Prostheses

When an engineer is attempting to design an artificial arm, a great many different data are needed concerning the forces and torques which the biological arm is put through each day. It is these "natural" forces and torques that the artificial arm must imitate. This research has designed an apparatus that willmake measurements on human arms and, thus, provide much of the necessary data for such designs. In addition, this apparatus is programmable, so that it can be used directly in the development of the software, i.e., computer programs, that will be used to control the artificial arm.